Financial and Academic Support for Underrepresented Undergraduates in Computer Science and Engineering

This project implements academic success strategies: accelerated learning groups, supplemental instruction, industry mentoring, and self- efficacy training in order to measurably increase student success. The Accelerated Learning Groups consist of the NSF scholars and an equal group of overrepresented computer science and engineering students. The broad evaluation plan ranges from simple statistics on retention and GPA to measures of motivation and the tools are chosen to aid student success, and to provide data publishable in peer- review journals.